Final Calibration, Analysis, and Reporting of Seawater Samples to Assess the Oceanic Uptake of Anthropogenic Carbon Dioxide

ABSTRACT

OCE-0083918

For over two decades the Carbon Dioxide Research Group at the Scripps Institution of Oceanography has been collecting seawater samples with the goal of assaying dissolved inorganic carbon in seawater as a means of detecting and understanding long-term changes associated with rising atmospheric carbon dioxide. In this project in an effort to continue and update this work, the Scripps investigators will (1) re-evaluate the calibrations of the manometric instrumental measurement systems utilized by the Group, (2) complete dissolved inorganic carbon, alkalinity, and 13C/12C isotopic analyses of stored samples backlogged over the years, and (3) adjust any past seawater-carbon dioxide Certified Reference Materials and data based on the new manometer calibration. Continued operation of the manometric measurement facility is of great importance to ocean and global carbon cycle research.